Acquisition of Three 0.8 m Automatic Photoelectric Telescopes for Northern and Southern Hemisphere Extrasolar Planet Searches

AST-0520740/Henry, Tennessee State University

Three new 0.8 m automated photoelectric telescopes will be obtained for high-precision photometry of planetary-candidate target stars in the northern and southern hemispheres. The telescopes will complement high-resolution Doppler spectroscopy to separate out true exoplanet candidates from stellar magnetic variations that can mimic periodic Doppler effects.